Optimal Distinctiveness: A Theory of Group Identification

It is a well.established finding in the study of interpersonal relationships that individuals prefer association with others who are similar to themselves. On the other hand, there is evidence that extreme similarity can be aversive and that individuals seek to establish distinctiveness from others as part of the maintenance of self identity. The current research is based on the premise that individuals select group memberships in order to meet simultaneously their competing needs for social differentiation and inclusion. Laboratory studies of artificially created groups and field studies of natural groups will be combined to test predictions that individuals prefer membership in distinctive subgroups (rather than majority groups) and will make efforts to preserve distinctive group identity even when such identification is disadvantageous. The results of these studies will enhance our understanding of the role of social group membership in establishing and maintaining individual self identity and mental health.